Analytical Methods for Modeling of Vibration and Noise of Ultra High Performance Machine Systems

Currently, limitations on the ability to model the dynamic behavior of machine systems often result in performance reducing dynamic behavior. This project addresses that limitation and focuses on the development of analytical design models of the dynamics and vibration of high performance, high productivity machine systems. It extends previously developed modeling techniques to more general machine configurations that include supporting structures, machine enclosures, and several types of clearance connections. The dynamic models will be formulated to permit the future integration with acoustic analysis techniques for predicting machine noise. The research examines both simple and complex dynamic models and concludes with an experimental evaluation of the models. The baffled impact beam is an example of a simple model. It comprises a beam like element (representative of a machine link) mounted in clearance connections attached to a base plate (representing a machine supporting structure). The plate is supported by elastic members which represent a machine's vibration isolation supports. The system is excited by forces applied to the beam through the base plate. This simplified model, although a simplification, contains representations of all of the essential elements found in a large class of machine systems. Dynamics modeling of this system is based on the finite element approach. Its validity will be tested experimentally. The complex modeling effort is similar to that associated with the simple models but will concentrate on models which are more representative of realistic machine systems.